Molecular Diffusivity Effects on Mixing in a Diffusively-Stable, Turbulent Flow

9977208

Rehmann

This laboratory study will examine the effect of the order of
magnitude difference between the molecular diffusivities of heat
and salt on the transport of the latter quantities by turbulence.
The focus will be on turbulence in stratified flows that are not
unstable to double-diffusive instabilities. Motivation for this
study comes from field observations and numerical modeling results
which suggest that in some types of turbulent flow there is
differential transport of heat and salt. The laboratory experiments
will provide a more controlled environment and more comprehensive
observations than can be achieved in the field. The importance of
understanding the degree to which differential transport of heat and
salt occurs lies in the role that these transports play in
determining the density stratification of the ocean and consequently
the large-scale climatological transport of heat by the ocean.